Puna Ridge on the Web - A Learning Event (PROWL)

98-09630 Proposal Summary: The PI proposes to create a World Wide Web site that will allow the general public to follow the experiences of oceanographers during an NSF-funded cruise. The research cruise is scheduled for the Fall of 1998 off the coast of Hawaii. Scientists will be surveying the Puna Ridge, a submarine ridge that is part of the currently erupting Kilauea Volcano. The web site will contain background information on the ship, scientists, and research project as well as teaching modules relating to Hawaiian geology, shipboard activities, scientific data collection, etc. Pre-cruise activities will also include advertisement of the project. During the four-week cruise, daily updates of scientific activities and discoveries will be posted to the web site. Post cruise activities will include repackaging the web site from a real-time event to an educational/fieldwork resource and production of a CD-ROM.